Use of Controlled Gas Chromatography/Mass Spectrometry in Laboratory Experiences for Undergraduate Science and Non-Science Majors As Well As Advanced High School Students

Distinct and diverse laboratory experiences for undergraduate chemistry and biology students, as well as advanced high school students, are involving the capabilities of an integrated gas chromatograph/mass spectrometer system. The system features ChemStation computer software to coordinate analyses of compounds in the benchtop Hewlett-Packard HP5890A GC/Hewlett Packard HP5917A Mass Selective Detector system. Classes for both majors and non-majors are using the instrumentation. The following areas have been greatly impacted by the new instrumentation: (1) organic chemistry courses for biology and chemistry majors, (2) the analytical instrumental chemistry course for chemistry majors and minors, (3) chemistry courses for non-science majors with emphases in either forensic science or environmental science, and (4) the Forensic Science Project for talented high school students, a two-week residential experience. The institution has contributed to the project in an amount equal to the NSF funds.